Control of Histone H4 Gene Transcription in the Sea Urchin Embryo

Dr. Weinberg is studying the transcriptional regulation of two histone H4 genes which are expressed with different temporal programs in the sea urchin embryo. The early H4 gene is transcribed in the cleavage and early blastula stages and is not expressed at gastrula. The particular late H4 gene he is studying is expressed at a low level until mid-blastula when transcription markedly increases. The major goal is to understand the control network involved in the differential regulation of these two genes. These studies should provide a model for gene regulation at a very early embryonic stage. The sea urchin H4 histone genes have a number of features similar to vertebrate H4 genes and information gained from the research proposed here should be relevant to H4 gene regulation in other organisms. Moveover, there are two aspects of sea urchin EH4 gene expression which are particularly exciting. The first is that a major part of the developmental control of the gene is negative. Deletions which include a 10 bp sequence between -150 and -140 result in a failure to repress transcription at post-blastula stages. One of the goals of the proposal is to understand this mode of EH4 gene control. A second feature which is of special interest is that the TATA box is required for transcription only if the binding site for the positive acting factor UHF-1 is deleted. Moreover, in an in vivo expression assay, the LH4 TATA box cannot substitute for the early TATA sequence in a gene lacking the UHF- 1 site. One of the goals is to investigate how UHF-1, TFIID, and an initiator element are involved in the initiation of transcription. The general strategy of these experiments is to identify sequence elements and test arrangements of the elements by transcription in nuclear extracts or by using an in vivo expression assay in which genes are injected into fertilized eggs of another sea urchin species.